The Women and Science Question: What do Research on Women in Science and Research on Science and Gender Have to do with Each Other to be Held in Minn., MN May 10-13, 1995

Gender issues relate very directly to the participation of women in science and to issues concerning the nature of modern science and technology. Prominent scholars have individually investigated and analyzed both phenomena in recent years, but there have been no opportunities for those historians, philosophers, sociologists, and anthropologists currently pursuing the social and humanistic studies of women and science, engineering, and mathematics to meet and discuss their theories and results. Dr. Sally Gregory Kohlstedt, a historian, and Dr. Helen Longino, a philosopher, are holding a workshop to bring together such researchers with the goal of improving the conversation, finding areas of agreement and contention, and publishing a result of their deliberations. The subsequent conference will allow other scholars an opportunity to present papers on related topics and a much larger audience to consider the issues and discuss the implications of research on "The Women and Science Question." The workshop and conference are being held May 10-13, 1995 at the University of Minnesota.